The PIE Network: Promoting Science Inquiry and Engineering through Playful Invention and Exploration with New Digital Technologies

The MIT Media Laboratory, in collaboration with six museums, will develop the "Playful Invention and Exploration (PIE) Network," with the goal of engaging a broader audience in science inquiry and engineering by enabling more people to create, invent and explore with new digital technologies. PIE museums will integrate the latest MIT technologies and educational research into their ongoing public programs. The museums will organize MindFest events, modeled after a two-day event at MIT in 1999, at which youth, educators, artists, engineers, hobbyists and researchers came together to collaborate on invention projects. The PIE Network will disseminate PIE ideas and activities to educators and families nationally.